Problems in 3-Dimensional Topology and Gauge Theory and Applications

Proposal: DMS-9971020

PI: Paul Kirk

ABSTRACT. The project concerns the computation and applications of
topological invariants in 3-dimensional topology, with an emphasis on
the use of analytic and differential geometric machinery. The
areas to be studied include the spectral flow of the Hessian
of the Chern-Simons functional and related 3-manifold gauge theory
invariants including the $SU(3)$ Casson invariant and
Atiyah-Patodi-Singer rho invariants. Also to be studied are twisted
Alexander invariants of knots, links, and strings and relations to
Casson-Gordon invariants and also applications of the
Kirk-Livingston combinatorial knot and link invariants.

Kirk's work in pure mathematics has as its goal the solution and
clarification of geometric problems in 3 dimensions. The setting of
3 dimensions on the one hand is familiar to all of us since the universe
we live in is 3-dimensional. But geometric problems in this area turn
out to be very difficult for the odd reason that in such low dimensions
there is "not enough room to move." This tension between a vague
familiarity and mathematical difficulty makes this area a particularly
interesting area for mathematicians to study. Kirk's approach to
the area is to combine traditional 3 dimensional techniques with
methods from other areas, especially methods that have made their way
into Mathematics from Physics.